High-Power Locomotory Muscle in Living and Extinct Reptiles

The proposed work will examine locomotory muscle power in living organisms and apply the findings to extinct reptiles (particularly pterosaurs, but results will be applicable also to dinosaurs). Preliminary work by the PI has suggested that some living reptiles possess high-power muscle fibers capable of generating (during "burst-level" activity) twice the weight- specific contractile power of avian or mammalian muscles. Since reptiles traditionally have been considered inferior to endothermic birds and mammals with regard to physiology and locomotion, this observation is remarkable. The PI now proposes to extend measurement of locomotory muscle power capacity to a variety of extant reptiles to determine the generality of his earlier observations. He will then apply the results to reinterpret the nature of powered flight in pterosaurs. *//